Time Reversal Symposium; Ann Arbor, Michigan; October 25-26, 1991

A two-day symposium on the status of research concerning the invariance of physical systems with respect to T (time) and CP (charge-parity) reversal will be held at the University of Michigan on October 25 and 26, 1991. The meeting will bring together theorists and experimentalists from atomic physics, high energy physics, astrophysics, and nuclear physics, to discuss current progress and future prospects for observing T-violation. The conference proceedings will be published and are expected to constitute a definitive statement on the status of this field.